1st International Symposium on Nanotechnology in Construction

The 1 st International Symposium on Nanotechnology in Construction will deal with both
nanomaterials and nanosensors for concrete construction, which will be beneficial to the
current research. Developments in nanotechnology have already enabled better
characterization of fiber-reinforced cementitious composites with the use of fiber push-
out tests to determine fiber-matrix bond strength, an important factor in the overall
performance of such composites. The use of nanosensors in concrete panels and other
concrete construction, would increase the understanding of hydration and damage
evolution. In a research setting, nanosensors could be used to detect crack initiation in
specimens under loading or to monitor the setting of concrete by detecting the
development of hydration products. The incorporation of nanosensors in concrete panels
would allow for real-time monitoring of the structure, providing information on durability
and early damage detection. The application of nanotechnology to concrete construction
is still extremely new. Attendance at the 1 st International Symposium on
Nanotechnology in Construction will allow the researchers to participate in an important
exchange of ideas and learn how best to apply these new ideas in developing their
concrete panels.